Acquisition of a Stopped-Flow Spectrofluorimeter

9302748 Caruthers The Department of Chemistry and Biochemistry and the Cooperative Institute for Research in the Environmental Sciences (CIRES) at the University of Colorado are requesting funds from the National Science Foundation to purchase a sequential stopped-flow spectrophotometer with both fluorescence and UV/vis detection. This instrument will play an important role in the education of graduate and post-doctoral students and in the research of faculty members in areas as diverse as organic chemistry, analytical chemistry and biochemistry.